Power Efficiency of Active Structural-Acoustic Control Systems

This research project deals with the development of a general theory of power efficiency for active structural acoustic control systems. Two classes of problems are studied: the control of free-field sound radiation from structures, and the control of structural sound transmission into enclosed spaces. For both classes of problems, the power efficiency is defined as the reduction of acoustic power output normalized with respect to the electromechanical power input. The research emphases are to derive expressions for the power efficiency for both classes of problems; to determine the effect of transducer selection and control law implementation on the power efficiency; and to investigate the fundamental limitations in power efficiency for active structural-acoustic control. The research strategy consist of four classes. First, power efficiency expressions are derived for both classes of control problems. An investigation in transducer selection and control law implementation is then performed with analytical models. Next, the fundamental limitations in power efficiency for both classes of problems are studied. The final task is an experimental investigation of the concepts derived from the numerical studies. The development of power efficiency models is novel because it enables different control implementations to be compared with a consistent metric. By providing a systematic method of comparing the tradeoffs in active structural-acoustic control, engineers are able to perform one to-one comparisons of such factors as transducer selection and location, control law implementation, and electromechanical design. The research provides a tool by which practicing engineers can quantitatively compare the merits of active control designs for applications such as the suppression of sound radiation in transportation systems, aerospace vehicles, and precision machinery.